WOCE Hydrographic Program: SIO 32 degrees S Pacific CFC Measurements

In this project, the PI will collaborate with PI's from two other institutions to carry out measurements of Chlorofluorocarbons (CFC's), F-11 and F-12, from water samples collected on three separate legs of a hydrographic cruise along 32|S in the Pacific from Chile to Australia as part of the World Ocean Circulation Experiment (WOCE) Hydrographic Program (WHP). This line is referred as WOCE line P-6. This particular project will focus specifically on the central portion between Easter Island and New Zealand. Data will be used to study ventilation and circulation of the upper water column, especially the Antarctic Intermediate Water. This work will also provide calibration of gas phase F-11 and F-12 standards used by all CFC laboratories for the WHP.